Low Cost Adaptive Routing Algorithms for n-Dimensional Meshes

This main thrust of this research is the performance modeling of routing algorithms. Almost all prior research work on oblivious and adaptive routing using virtual channel flow control relies on simulation for performance prediction. Although simulation can mimic a physical system quite accurately, it is very expensive in terms of computation time. The analytical models being developed will be quite effective in evaluating various routing algorithms and architectural features, and are much more efficient than simulation. The project is also investigating the fault-tolerant properties of adaptive routing algorithms.